Thermal Plasma Synthesis of Fine Ceramic Powders

Thermal Plasma Synthesis of Fine Ceramic Powders: This award recommendation is made under the U.S.-Industrialized Countries Program for the Exchange of Scientists and Engineers, 1987/1988 Competition. The program is designed to enable U.S. scientists and engineers to conduct long-term research at research institutions in the industrialized countries of Western Europe as well as Japan, Australia and New Zealand. Exchange awards provide opportunities for the conduct of joint research and the utilization of unique or complementary facilities, expertise and experimental conditions in foreign countries. Awards are selected on the basis of scientific criteria relevant to his/her field of science, the prospective potential of the applicants for professional growth, as well as criteria relevant to the furthering of international cooperation in science and engineering. The program is particularly directed to scientists and engineers who are embarking on their research careers. This research project will address the study of particle formation mechanisms occurring during thermal plasma synthesis of fine-powdered ceramics. This will be investigated by use of equilibrium-composition computer codes, and the selection of suitable model systems for experimental powder production. This project is under the direction of Dr. Robert M. Young, Department of Mechanical Engineering, University of Minnesota, 111 Church Street, S.E., Minneapolis, MN 55455, U.S.A., and Professor I. J. Polmear, Chairman, Department of Materials Engineering, Monash University, Clayton Victoria, 31268, Australia. This award recommendation provides funds to cover, as appropriate, international travel, local travel abroad, stipend, dependents allowance, if applicable, language training, if required, and a flat administrative allowance of $250 for the U.S. home institution.